Catalysis for Environmentally Conscious Manufacturing

GER-9554586 Root The Nation has a pressing need for chemical engineers who are conscious of environmental prerogatives and are able to discover innovative new processes that will satisfy chemical demands and meet environmental and economic criteria. We are requesting Graduate Research Traineeships in Catalysis for Environmentally Conscious Manufacturing. The trainees will gain expertise in developing new catalytic technologies that can b used for production of desired chemical products or intermediates with little or no generation of undesired waste or byproducts. The Department of Chemical Engineering has substantial expertise in catalyst design, process design, and analysis. The focus on environmental consequences of upstream processing decisions will train students to optimize the entire chemical process through use of appropriate catalytic technologies, and permit development of alternative chemical synthesis pathways that are environmentally benign. The chemical industry is one of the largest contributors to international trade, and chemical engineers trained in environmental consequences will be critical in maintaining competitiveness. Our training program will produce engineers who will receive not only the excellent academic training for which Wisconsin chemical engineers are know, but also a research and educational experience that will develop awareness of and ingrained concern for the environmental implications of their professional activities.